Conference: 2026 Defects in Semiconductors GRC

Nontechnical description

Semiconductors are foundational materials for modern technology. They are the basis for everything from communications and electronics to artificial intelligence and quantum technologies. Defects are critical to the performance of any semiconductor device. They can be unintentional impurities or crystal imperfections that degrade device efficiency and reliability. They can also be deliberately introduced atoms and structural features that enable desirable functions. Mastering defects — learning to detect, understand, and control them — is therefore central to both established and emerging semiconductor technologies. This award supports the 2026 Gordon Research Conference on Defects in Semiconductors and the associated Gordon Research Seminar (GRS). Seminars are organized by and for young investigators to enable them to interact with leaders who may later serve as mentors. This event brings together academic, government, and industry researchers to share cutting-edge work on defect physics and its implications for semiconductor materials and devices. NSF funding supports participation by early-career U.S. researchers, including graduate students, postdoctoral fellows, and junior faculty. They gain exposure to the forefront of the field, forge mentorship relationships with leading scientists, and build the collaborative networks that are essential to productive research careers. Students and postdoctoral fellows who attend the Seminar also have the opportunity to present their work and receive peer feedback in a supportive setting before engaging with the broader conference community.

Technical description

The 2026 GRC on Defects in Semiconductors, organized under the theme "Understanding, Designing and Controlling Atomic Flaws for Functional Devices", addresses the full scientific scope of defect physics in semiconductors: from isolated point defects and their charge transition levels, to defect complexes and extended structural imperfections, to the macroscopic consequences of defects for carrier transport, recombination, and long-term device degradation. The conference convenes theorists, experimentalists, and device engineers in a format that uniquely facilitates frank discussion of unpublished results and open scientific challenges. The conference brings together theory and computation (density functional theory, many-body perturbation theory, machine-learned potentials, high-throughput informatics) with advanced experimental characterization (deep-level transient spectroscopy, electron ptychography, atom probe tomography, time-resolved photoluminescence, magnetic resonance spectroscopy) and device-level studies across a broad materials palette — spanning conventional semiconductors (Si, GaAs, InP), wide-bandgap nitrides and oxides, 2D materials, perovskites, and emerging quantum hosts. This cross-cutting scope makes the GRC uniquely effective at seeding the kind of interdisciplinary collaboration — between theorist and experimentalist, between materials grower and device engineer — that accelerates progress on problems no single community can solve alone. The 2026 program encompasses nine thematic sessions of direct relevance to the EPM portfolio, including defects in two-dimensional materials and emerging systems; quantum defects for sensing and information technologies; defects and interfaces in complex materials; defect-mediated recombination and transport processes, and defects in wide and ultrawide-bandgap semiconductors.